Native American-based Materials for Integration into Undergraduate Mathematics Courses

Mathematics(21). This project develops mathematics material prototypes for integration into selected undergraduate courses at California State University Fullerton (CSUF) and the University of Wyoming (UW), which are based in the mathematical traditions of Native American peoples. Currently, most mathematics curriculum materials at both these and most other universities are textbook-based, or at best, somewhat technology-based. In any case, most of these materials are culturally homogenous, focusing on Western traditions of mathematics and mathematical methods. This project uses a previous study of Native American Indian mathematical traditions of the Western region and develops materials (both print and technology-augmented lessons) based in those traditions, pilots them through integration into a variety of existing courses at these universities, revises these materials as necessary, and makes available for broader dissemination to other universities, colleges and community colleges--especially those with Native American student populations.

The prototypes produced by this project allow instructors of Native American students to include relevant materials in their courses, in addition to allowing all students a fuller appreciation of the diversity of mathematics and Native American intellectual tradition.